Roadside Heritage: Informal Science Education in the Eastern Sierra Nevada Byways

This proposal will develop and disseminate locally developed STEM-rich audio programs for the traveling public, in particular vacationing families, using emerging traveler information technologies, traveling festival kits, and an interactive website. The project is linked to the 220-mile Eastern Sierra Scenic Byway that traverses a dramatic landscape, rich in natural resources and unique contributions to scientific research. Collaborators include the Eastern Sierra Institute for Collaborative Education and the University of California at Berkeley's Lawrence Hall of Science.